Teacher Enhancement in Applied Ecology

This project is a three year program that offers five-week teacher enhancement summer institutes, followed by academic year curriculum development activity. The summer institutes will be held at Mankato State University. A total of 72 middle school science teachers (24 per year), from a six state Midwest region, will participate in summer research experiences and presentations in the subject area of soil biology/agroecology. Teachers will have the opportunity to study the organisms in soils, apply what they learn to issues in agroecology, and participate in writing, testing, and revision of classroom materials. Laboratory materials to be used are readily available to participant teachers and their students for in-class experimentation and study. Research projects undertaken by the participants will be designed for transport back to the home classroom to engage students in the projects, and will not require complex instrumentation and techniques. Each teacher will provide in-service training for colleagues. Included will be 6 one-week workshops conducted by two teacher teams at different locations within the region. At least 60 additional teachers will be trained in these workshops to conduct similar research activities with their students. These workshops will be funded, in part, by local funding. An amount equal to 20.5 % of NSF costs has been provided as cost sharing.